U.S.-Australia Cooperative Research: Numerical Simulations and Stochastic Modeling of Turbulent Mixing and Dispersion

9526868 Yeung This award will support the travel costs, over a two year period, to enable Dr. Pui-kuen Yeung of the Aerospace Engineering Department at the Georgia Institute of Technology, and for Catherine Moseley, a graduate student in the Department, to conduct collaborative research with Dr. Michael S. Borgas from the Division of Atmospheric Research of the Commonwealth Scientific and Industrial Research Organization (CSIRO) located at Mordialloc, Victoria. The cooperative research will focus on simulation and stochastic modeling of contaminant transport and dispersion in turbulent airflows. In air pollution problems the mean concentration region arising from localized pollution sources is primarily determined by a disorderly motion of fluid elements best described using the Lagrangian approach of fluid mechanics. The data, which are difficult to measure, may be extracted from numerical simulations of the exact, instantaneous momentum and scaler transport equations in turbulence. This research is of particular timeliness in enhancing the development of stochastic models of turbulent dispersion in the environment. The CSIRO laboratory conducts a large atmospheric research program, and that combined with the parallel computing facilities available at the Georgia Institute of Technology, will enable this study to be realized. Support in Australia is provided through the Department of Industry, Science and Tourism (DIST).